1997 Gordon Conference on Atomic Physics to be held at New England College, Henniker, New Hampshire, June 29 - July 4, 1997

This grant is for support of junior attendees to the 1997 Gordon Research Conference on Atomic Physics, to be held in New Hampshire, June 28-July 4, 1997. This conference is a major source of communication of new research directions in atomic, molecular and optical physics and support of the meeting enables students and postdocs to contribute to and be exposed to these new areas